IDPU/WG: Women in Science: A Community of Learners

The University of Wisconsin-Stevens Point (UWSP) recently implemented a Freshman Interest Group (FIG) initiative on its campus. The program has generally been successful; however, the success has not been universal. The single science, mathematics, engineering and technology (SME&T)-related FIG attracted only 12 students in its inaugural year and seven in its second year--all male. The experience highlights the difficulties regional universities may experience implementing national educational reform models as well as the need for a SME&T-related initiative that targets women. This project's goal is to develop the resource referred to as the "second tier," those who can do science, but opt not to. The knowledge gained by identifying those components that appear most effective could reform the way science is taught. The specific objectives are to: create a Women in Science learning community; enhance classroom instruction with study groups; provide technology training, career information, role models, and related work experience; acquaint faculty members with gender issues; and identify the facets of the intervention that are most effective. The program includes an interdisciplinary course that participants will take as a cohort. The curriculum will be enhanced with field trips, guest speakers, and career information. Mentor-led study groups, a technology workshop, a family open house, and SME&T-related student employment will provide additional scaffolding.